The Structure and Evolution of Low-Mass Stars

Paczynski will carry out theoretical research centered on problems of stellar evolution and neutron stars. Paczynski is a world-class theoretical astrophysicist who has tackled problems of stellar evolution, x-ray emitting stars, binary pairs of stars that transfer matter among each other in a violent manner, and more. This award allows him to continue his research with additional focus on stellar evolution and neutron stars.